Measuring Metabolic Fluxes: Applications for Elucidating Energetics and Regulation

This project plans to map the fluxes, enzyme activities, and metabolic levels for key reactions in the glycolytic pathway and the tricarboxylic acid (TCA) cycle for two common bacteria, E. coli and B. subtilis. Both wild-type and metabolic mutants will be examined in order to obtain regulatory insights and alternative yield scenarios. Four areas are expected to be impacted. First, an improved understanding of how the TCA cycle and glycolysis are coordinated would be obtained. Secondly, the magnitude of the energy spilling reactions would be determined. Thirdly, the results could prove useful to developing cultivation conditions that promote the maximal conversion of carbon to cell mass. Finally, metabolic engineering strategies could be identified that would allow one to alter the regulation of the cell in an optimal manner.